Presidential Young Investigators Award

This is a PYI proposal. The PI's research will be in three related areas. One area is the mathematical theory of electromechanical systems. The second area will focus on modeling of switchmode power converters. The third area will be in the optimal design of double-salient machines.